Active Control of Coupled Aeroelastic/Structural Acoustic Systems

9501470 Clark This CAREER award emphasizes research and educational activities related to attenuating acoustic response of enclosed sound fields such as the fuselage of an aircraft subjected to turbulent boundary layer excitations. A coupled model of the aeroelastic, structural acoustic system is developed for single-leaf and double-leaf partitions between compressible flow fields with a mean velocity and an enclosed sound field. Turbulent boundary layer noise models are used to generate the exogenous inputs to the system, and acoustic response is controlled through structural acoustic control methods. Wind tunnel tests are performed for model validation and alternate control strategy evaluation. Educational programs include the development of an electromechanical control system demonstration unit, outreach to a local science museum, design of a course on adaptive structures, and integration of latest computer software packages for dynamics and control in undergraduate mechanical engineering instructions.***